A Program to Develop Isogenic and Congenic Lines of Hydractinia

; R o o t E n t r y F #( Y C o m p O b j b W o r d D o c u m e n t v O b j e c t P o o l #( Y #( Y 4 @ ! " # $ % & F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; 9531689 Buss Invertebrate allorecognition responses have been known since the turn of the century and have been claimed to represent primitive vestiges of the vertebrate immune system. Several attempts have been made to establish the molecular basis of these responses, without notable success. This is due in part to lack of an adequate laboratory model system, particularly the lack of defined genetic lines bred for their fusibility characteristics. This project will continue efforts to develop isogenic and congenic lines of the hydrozoan Hydractinia symbiolongicarpus. These organisms would then be used in studies of allorecognition which will provide information not only on these organisms but on the origin of the immune response. *** ; Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\ABSTRACT.DOT 9531689 Barbara S u m m a r y I n f o r m a t i o n ( Zain Barbara Zain @ E Y @ @ E Y ( @ F # Microsoft Word 6.0 3 ; e = e v " " " " " " " L L L L L L V L k e ` d d d d d d d # - M T $ R k " d d d d d k d " " d ` d d d d " d " d 6 > " " " " d d d 9531689 Buss Invertebrate allorecognition responses have been known since the turn of the century and have been claimed to represent primitive vestiges of the vertebrate immune system. Several attempts have been made to establish the molecular basis of these responses, without notable success. This is due in part to lack of an adequate laboratory model system, particularly the lack of defined genetic lines bred for their fusibility characteristics. This project will continue efforts to develop isogenic and congenic lines of the hydrozoan Hydractinia symbiolongicarpus. These organisms would then be used in studies of allorecognition which will provide information not only on these organisms but on the origin of the immune response. *** u $ $ $ $ $ $ $ $ $ $ $ $